Mathematical Sciences: LP Regularity for Nonelliptic Differential Equations

This award supports mathematical research concerned with nonlinear differential equations which are nonelliptic. The goals are to establish regularity results about solutions belonging to classes of functions in various spaces called Sobolev spaces. The differential operators under consideration are inverted through integral formulas of the Fourier-Airy type. These have an oscillatory kernel and are under intensive investigation at this time. Currently it is possible to obtain the mapping properties of the integral operators within a small loss of derivative; work is being done to show that one need not assume this extra loss. Other emphasis will be placed on establishing the p-th power regularity of solutions of the wave equation on the complement of strictly convex obstacles. Some good results have been obtained from a model case, by considering the problem with boundary a fixed distance from the obstacle and then letting the distance decrease. If this technique can be validated in the general case it will not only provide an existence proof of regularity but also provide a convergence method for approximating boundary data. Additional work is being carried out on the oblique derivative problem, where boundary data is given in terms of 'flux' passing through the boundary at oblique and even tangential directions. Two methods of solutions are known, each depending on additional assumptions. Efforts will be made to make sharp comparisons between them.